Proposal to Organize Third International Workshop on Multistrategy Learning (MSL '96); May 23-25, 1996; Harpers Ferry, WV

This is planning and preparation funding for the Third International Workshop on Multistrategy Learning, which seeks to further explore the implications of the multistrategy approach to machine learning. This workshop will provide a forum for a group of researchers to present and discuss the progress and most recent results in the area of multistrategy learning and its practical applications, and hopefully, to serve as an aid in planning further research in the area.